PostDoctoral Research Fellowship

This award is made as part of the FY 2018 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Matthew R Mills " The equivalence of cluster algebras and their upper cluster algebras". The host institution for the fellowship is Michigan State University and the sponsoring scientist is Michael Shapiro.